Ultra-Sharp Nonoscillatory Simulation of High-Speed Steady Flows

Development of reliable and accurate advection methods continues to be a major item in the construction of general-purpose computational fluid dynamics codes for use in fluid dynamics, heat transfer, combustion, and process engineering. A cost-effective implementation strategy for computation will be developed based on "adaptive stencil expansion": the base scheme uses limited third-order unwinding (ULTRA- QUICK); then in the strong curvature regions, the algorithm automatically expands the stencil to higher-order unwinding to improve accuracy and increase resolution. The expanded-stencil computation occurs only in narrow isolated regions of the computational field, thus adding little to the overall computational cost. Using a "downwind weighing factor", the arbitrary higher-order mulit- dimensional algorithm can be made compatible with existing commercial and research codes. The resulting algorithm will be tested and optimized on a number bench-mark problems involving passive convection-diffusion, laminar and turbulent flows and convective heat transfer.